Transient Infrared Spectroscopy as a Probe of Coordinatively Unsaturated Metal Carbonyls

In this project supported by the Experimental Physical Chemistry Program of the Chemistry Division, Weitz will investigate coordinatively unsaturated metal carbonyls using transient infrared spectroscopy. He will focus on the kinetics and mechanisms of a number of reactions of coordinatively unsaturated metal carbonyls with an emphasis on catalytic processes. Proposed studies include mechanistic studies relevant to olefin isomerization induced by iron and group VI carbonyls; manganese carbonyl-olefin complexes; H2Fe(CO)3(C2H4) reaction kinetics and the hydrogenation of olefins; hydrosilation of olefins; determination of bond dissociation energies; and formation of compounds by oxidative addition processes. Infrared laser absorption spectroscopy with time resolution will be used in these studies.

In this project real time information about a number of catalysis reaction processes will be obtained, and the important kinetic steps in their mechanisms will be elucidated. This information is important for being able to understand and improve on many of the industrial processes which involve these types of reactions, and so it will be of widespread interest to both pure and applied chemists.